Dynamics and Structure in Chemical and Biophysical Systems

In this project in the Theoretical and Computational Chemistry Program, Ronis is developing new statistical mechanic theories for static and dynamic properties of condensed systems. This project involves a diverse set of topics ranging from developing theories of phase transitions and critical phenomena in condensed media to modelling micelles, membranes and biological systems such as gramicidin-A. Ronis is developing new and extending existing theories in statistical mechanics to static and dynamic problems in condensed systems. The immediate goals are 1) to study the effects of solvent and backbone flexibility on time correlation functions which determine the alkali-ion permeability in gramicidin-A; 2) to calculate the ionic potential of mean force near the mouth of a model gramicidin-A/membrane pore system; 3) to develop an improved theory of the ionic double layer near highly charged polarizable surfaces; 4) to extend his microscopic theory of membrane transport to diffusive transport in zeolites; 5) to study the effect of inter-particle correlations on phase transitions and size distributions in ionic micellar suspensions; 6) to develop a kinetic theory of binary mixture phase transitions in porous media; 7) to improve his theory of critical phenomena in turbulent flows by solving a self-consistent theory of the coupling of critical dynamics to the fluid motion flow; 8) to develop a theory of instability mechanisms and fluctuations in colloidal crystals; 9) to develop a theory of enhanced radiative energy transfer in small particles; and 10) to develop a theory of spinodal decomposition near the critical point.